Atomic Absorption Spectroscopy in the Undergraduate Laboratory

9352715 Senftleber The university will purchase a flame and graphite furnace atomic absorption spectrometry for metal ion analysis. The experience will extend to general chemistry, analytical chemistry, instrumental analysis, physical chemistry, and environmental science. Environmental projects will focus on local sites. Undergraduate research as well as teacher inservice classes will also benefit from this new direction emphasis. ***